2023 Complex Active and Adaptive Materials Systems: Optimizing the Synergy Between Architecture, Non-Equilibrium Processes and Materials

This award supports travel expenses and registration fees for invited speakers, undergraduate and graduate students, post-docs, and under-represented, and junior faculty to attend and present at the Gordon Research Conference (GRC) and Gordon Research Seminar (GRS) on Complex Active and Adaptive Materials Systems to be held January 28 to February 3, 2023, in Ventura, California.

The conference will involve cross-disciplinary researchers in non-equilibrium systems for functional materials and soft machines that can self-assemble and adapt in response to their environment. The conference includes a session designed to address diversity and inclusion in the scientific workplace. The GRS is a dedicated avenue for doctoral and post-doctoral researchers to present and discuss their work and establish collaborative relationships with their peers. Mentors and trainee moderators will facilitate active participation in scientific discussion.